Development of a Strategy and Architecture for an IPY Data and Information Service: A Planning Proposal

This activity will support the first full meeting of the IPY Data Policy and Management Subcommittee (DPMS) under the auspices of the ICSU/WMO Joint Committee. The DPMS is co-chaired by the Co-I, Parsons.

The award will support a three day meeting and the subsequent publication of it's recommendations. The first day of the international workshop will be a meeting of the IPY Data Policy and Management Subcommittee. The subsequent two days would be a broader forum to discuss particular implementation details of the DIS based on the policies determined by the data committee. The data management discussion would focus primarily on issues related to the Arctic, since the arctic data management is not as well organized as in the Antarctic and there are unique issues related to the communities living in the Arctic. Nevertheless, Antarctic researchers and data managers would explicitly be included to provide lessons learned from the coordinated Antarctic experience and to ensure that a truly global strategy is developed.

The workshop will be held at British Antarctic Survey in Cambridge in the spring of 2006. The IPY International Programme Office there has agreed to host the workshop and provide in kind support. This ensures that the workshop is conducted under the auspices of IPY, and it reduces the general facility budget.